Block Travel Grant for International Conference on Harmonicsin Power Systems, Budapest, Hungary, October 4-6, 1990

This is a block travel grant to partially support persons attending the Fourth International Symposium on Harmonics in Power Systems in October, 1990 in Budapest, Hungary. The meeting is an IEEE co-sponsored meeting which has been held in the past in the United States and Canada. This is an international meeting which typically attracts many Europeans. This grant will enhance the representation of U.S. power engineers at this meeting.